Instrumentation for Complementary Inorganic, Organometallic, and Bioinorganic Spectroscopy

With this award from the Chemistry Research Instrumentation and Facilities: Departmental Multi-User Instrumentation program (CRIF:MU), Professors David J. Singel, Joan B. Broderick and Robert K. Szilagyi from Montana State University will acquire a suite of new spectroscopy instruments and upgrades to existing instruments which will enhance their capabilities to do ultraviolet-visible, EPR and Mossbauer spectroscopies on interesting inorganic, organometallic and bioinorganic chemical systems. The instrumentation would support the spectroscopy needs of six major users (Joan Broderick, Trevor Douglas, Yves Idzerda, John Peters, David Singel and Robert Szilagyi) and their research students. Amongst the variety of topics to be studied are: 1) studies of enzymes with interesting iron-sulfur moieties (Broderick and Peters); 2) the study of protein cage templates for nanomaterials (Douglas, Idzerda and Szilagyi); 3) the physics of magnetic nanomaterials (Idzerda); 4) the study of nitrogenase and hydrogenase structure, mechanism and assembly (Peters, Broderick, Douglas and Szilagyi) 5) the biochemistry of nitric oxide (Singel, Szilagyi) and 6) the development of an improved understanding of potential energy surfaces in inorganic, organometallic and bioinorganic catalytic processes (Szilagyi) . The instrumentation will be available to a broad range of young scientists doing research in the research groups of the major users.

The spectroscopic instruments that are the subject of this award allow chemists to probe the electronic structure and chemical bonding in a number of interesting, primarily metal-atom-containing systems. The information that is obtained in this kind of research enables chemists to develop a better understanding of how these species participate in catalytic reactions. The studies described here will impact a number of areas, including fundamental chemistry, catalysis and biology. Students using the apparatus will receive valuable training with cutting-edge instrumentation.